Density-Driven Liquid-Liquid Phase Transition in Yttrium Oxide-Aluminum Oxide Liquids

9525984 McMillan The goal of this exploratory research is to examine the experimental evidence for a new type of behavior in the liquid state. A first-order phase transition between two liquid phases has been observed that is driven by entropy and density differences between the two liquids rather than by compositional fluctuations in the system yttrium oxide- aluminum oxide (Y2O3-Al2O3). The study of this liquid-liquid phase transition is important in order to further develop a fundamental understanding of the nature of the liquid state, and for the advancement of new materials useful in the construction of lasers. %%% Liquids in the Y2O3-Al2O3 system are of considerable commercial importance, because they give rise to the YAG family of laser host materials and other refractory ceramics. It is likely that the existence of the structural phase transformation in these liquids may be harnessed to tune the properties of crystals around the garnet crystal. The study of the new phenomena also has significant intrinsic scientific interests. ***